RIA: Integrating Computer-Aided Design and Fault Tolerance for Reconfigurable VLSI/WSI Architectures Design

The objective of this research is to provide an integrated computer- aided design (CAD) environment for the synthesis and evaluation of reconfigurable VLSI (very-large scale integrated) or WSI (wafer-scale integration) concurrent architectures. With the rapid progress of VLSI technology, the chip sizes are to increase substantially, perhaps up to the level of WSI. However, low manufacturing yield has become a problem of increasing significance, especially in WSI where it is unlikely to get a defect-free wafer. Redundancy techniques are being utilized to overcome this difficulty. Substantial yield and reliability improvement in VLSI/WSI parallel architectures can be achieved by a proper integration of the architectural redundancy, fault diagnosis, and reconfiguration techniques. Initial promising results have been obtained on these issues and further investigation is being performed to enhance the reconfigurability of classes of architectures, and performance of diagnosis and reconfiguration algorithms. Moreover, CAD and analysis tools are being developed to assist the computer architect in the synthesis and evaluation of alternative highly parallel designs appropriate for yield and reliability enhancement. The emphasis is on analysis and design of application specific reconfigurable concurrent architectures and reconfiguration algorithms appropriate for WSI.